Conference: Proteins That Bind RNA will be held in Avalon, NJ on May 3 - May 7, 1998.

9731117 Krug The goal of this meeting is to bring together molecular biologists and structural biologists investigating prokaryotic and eukaryotic RNA-binding proteins in a forum designed for efficient information exchange and in an environment that can stimulate future research and collaboration. Approximately 1/3 of the participants will be graduate students and postdoctorals. Speakers will include a mix of experts and young investigators in the areas of molecular biology and structural biology of RNA-binding proteins. This unique meeting will bring together an interdisciplinary group of experts and young investigators in a format conducive to scientific discussions, thereby spawning new interactions and collaborations between molecular biologists and structural biologists.